1999 Dictyostelium International Meeting; Bar Harbor, ME, August 14-19

The 1999 International Dictyostelium Meeting will be held August 14-19 in Bar Harbor, ME. This meeting brings together researchers from all over the world to discuss the latest advances in research on this important model system. Support is requested from the NSF to offset some of the cost of the meeting and to allow investigators with limited grant support to attend the meeting. The focus of these travel awards will be on new investigators, as well as women and minority post-doctoral fellows and graduate students in order to increase their representation among the attendees.